Collaborative Research: Dissociating Perceptual and Motor Correlates of EEG Mu-Alpha and Beta Oscillations in Emotional Action Simulation

From jumping jacks to jumping for joy, the "body language" of human movement provides
important information about the intentions and emotions of others. Growing evidence suggests
that we understand others' mental states by internally recreating, or simulating, their external
actions. Yet questions remain about how different brain systems contribute to action simulation,
and whether this process is linked to individual differences in social perception abilities. This
research uses electroencephalography (EEG) to examine brain activity associated with action
simulation during observation of emotional body movements, both in typically developing
individuals and in individuals with autism spectrum disorder (ASD), a condition associated with
social perception impairments. By testing the link between EEG measures of action simulation
and emotion perception capabilities across a broad sample of individual socio-emotional
functioning, these data will provide a rigorous theoretical framework for understanding the
neural basis of emotional action simulation. More broadly, the research may provide new
insights into the neural origins of social impairments observed in ASD, potentially leading to
improved diagnoses and therapies. Finally, these activities will promote undergraduate training
in the STEM disciplines by providing authentic research opportunities for students including
women and underrepresented minorities.

The proposed research will examine the relation between perceptual and motor circuits in
emotion simulation. In a previous EEG study, the investigators found distinct neural markers
associated with the observation of emotional and emotionally-neutral actions. Emotional actions
elicited a reduction of cortical "mu" alpha rhythms (9-12 Hz) linked to perceptual aspects of
action simulation, but neutral actions produced enhanced beta-band oscillations (14-20 Hz)
associated with motor planning and response inhibition. Both effects were attenuated in a nonclinical
sample of individuals reporting greater autistic tendencies, suggesting these neural
markers are sensitive to individual differences in social-emotional traits. The proposed research
will investigate the contribution of motor circuits to mu-alpha suppression for emotional actions
by comparing action execution with observed emotional action and varying the familiarity and
ease of simulating observed emotional actions. Examination of individuals with ASD will
distinguish how mu and beta band activity relate to individual differences in emotional
processing, allowing assessment of whether neurodevelopmental disruptions of sensorimotor
systems play a role in emotion simulation deficits. Collectively, these studies will provide
important insights into the relations between EEG measures, action simulation processes, and
emotion perception.